Database for Image Processing Research

This grant provides partial support for an IEEE-sponsored database comprised of sampled images and image sequences that has been established at the National Center for Supercomputing Applications (NCSA) in Urbana, Illinois, with the Signal Processing Society serving as a gatekeeper. This database is accessible via the InterNet at no charge to the users. Data is being solicited from university, industrial and military sources. The data will provide a needed testbed for evaluation of image processing algorithms.